Fluctuations and Conditional Dynamics in Quantum Optics

This continuing project on quantum fluctuations in the radiation field will study the initiation of directed collective spontaneous emission from excited two-state atoms, conditional homodyne detection, and non-Gaussian fluctuations of nonlinear and noisy quantum systems, as realized in cavity quantum electrodynamics (QED). It will include an international collaboration with Macquarie University, Sydney, Australia, involving short term exchange visits for graduate students and postdocs.